Doctoral Dissertation Research in Sociology

This is a dissertation improvement award. Demography, a discipline founded in 1878, studies the relation between population and social structures and culture. This project relates the historical development of demography to cultural and political values of the time, especially to social policies promoting lower birth rates. The study focuses on individuals involved in establishing demography, and on political tracts and other literature reflecting concerns with birth rates.